Travel Support to conduct research on Automated Generation of Verification Tools: INRIA-Antibes, France: 1992

Under the award CCR-9120995, the Principle Investigator and his colleagues at SUNY Stonybrook are continuing their NSF funded research on verification tools for concurrent systems and on software capitalization of the findings. Simultaneously, E. Madelaine and his collaborators at INRIA are engaged in an independent, closely related project. This supplemental award provides travel money to INRIA for the P. I. and one graduate student so that the two activities can be combined at the implementation stage in the form of a front-end generator accepting language specifications and producing routines to compile designs into finite state machines. INRIA will support a comparable coordination effort by the European investigators.